Dissertation Research: Importance of Plant Species Composition to Ecosystem Properties in the Central Great Plains Grassland

This project will test ideas about the effects of individual plant species and lifeforms on ecosystem function in the central grassland region. The focus will be on the influence of species and lifeforms on soil resource availability using three levels of investigation: process studies at the Central Plains Experimental Range, site comparisons across a regional gradient, and simulation analyses. Process studies will focus on elucidating the relationships among plant litter chemistry, biomass allocation, soil organic matter and nutrient supply. A comparative study across a regional gradient will test the extent to which environmental controls may mitigate or increase the importance of species characteristics. Finally, the investigators will conduct simulation analyses to evaluate the potential influence of changing species composition over time at several sites that cross the regional gradient; this simulation will test the long-term consequences of patterns observed in the field.